Design and Editorial Services (Task Order 77)

This Bio-Systems Task Order is to provide publication support services for updating NSF 89-59, Antarctic Conservation Act of 1978, to include the law, regulations, and other authoratative material.